Lie Group Actions in Geometry

DMS - 0203697 PI: Wolfgang Ziller ABSTRACT

The principal investigator plans to continue his work on various
ways in which Lie groups arise in geometry. Special emphasis will be put on
geometry and topology of cohomogeneity one manifolds, i.e. manifolds on which a
Lie group acts with one dimensional quotient. In our previous proposal we
conjectured that every cohomogeneity one manifold has a metric with
non-negative sectional curvature. A particularly interesting case are the
Kervaire spheres which are exotic in many dimensions. We will try to construct
metrics with nonnegative curvature on these Kervaire spheres. A further goal is
to classify all cohomogeneity one manifolds with positive sectional curvature
in the hope of finding some new examples, with good candidates available in
dimension 7 and 9.
We will also study variational properties of homogeneous Einstein metrics. In
our previous proposal we showed that a partial Palais Smale condition is
satisfied which enables one do carry out Morse theory and Lusternik Schnirelmann
theory.

A subject of major interest in global Riemannian geometry is studying manifolds
whose curvature have special properties, in particular those whose curvature has
a fixed sign. Manifolds with positive curvature or nonnegative curvature have
been studied since the beginning of global Riemannian geometry. Very few
examples of this type are known and new ones seem to be difficult to construct.
A main objective of our proposal is to construct such knew examples. Of
particular interest are exotic spheres, which are manifolds that look
like spheres but on which ordinary calculus is quite different. These objects
were discovered 40 years ago by Milnor and ever since then geometers were
interested in finding a geometric description of them where the natural local
invariants look like spheres, i.e. where the curvature is positive or
non-negative. Whether they have metrics of positive curvature is in fact one of
the major open problems in the subject.
Another subject of major interest in global Riemannian geometry is the existence
of Einstein metrics, which have many applications in physics in particular to
building new models of Kaluza Klein theory. In this context homogeneous Einstein
metrics have been studied a lot by various physicists. We develop a general
variational theory for homogeneous Einstein metrics which enable one to find
many new examples without having to solve the algebraic equations which the
Einstein equations reduce to in the homogenous case and which can be quite
difficult or impossible to solve explicitly.